Uncertainty Evaluation and Mitigation in Electric Power Systems

The objective of this research is to develop computationally
efficient methods for evaluating the global impact of parametric
uncertainties on power flow solutions and the dynamic performance of
electrical power systems. The approach is to integrate two promising
tools, the probabilistic collocation method and trajectory
sensitivity-based methods. These tools permit the selection of a
sparse set of simulations from which a mapping between uncertain
parameters and the output(s) of interest can be found. The mappings
can be used to study the effects of critical uncertainties, and to
tune parameters to mitigate those effects.

Intellectual Merit:

The intellectual merit of the project lies in the study of
methodologies that permit uncertainty evaluation for large dynamic
models of electric power systems. The project will develop
techniques for selecting a sparse set of simulations that enable
performance evaluation over the domain of possible parameter values.
Investigations of trajectory sensitivities will seek to establish a
fundamental understanding of the influence of dynamic models on
uncertainty propagation. Insights into the role played by the
network structure will be provided, and tools that exploit that
structure developed.

Broader Impact:

Utilities use simulation-based evaluation of system behavior to make
decisions that have tremendous economic and reliability
implications. The parameters of many models are, however, quite
uncertain. The techniques developed in this project will allow
efficient assessment of such uncertainty. The risk of large
disturbances will be reduced accordingly. Given the wide
applicability of the developed methods to general large-scale
systems, the project will stimulate diverse educational
opportunities.